ITR: Implementation of Functional Logic Languages

Functional logic (FL) programming languages provide several
advantages over declarative languages based on either functions or
predicates only. A narrowing engine is an essential component of
FL languages. Narrowing engines available to date are all
prototypical and almost universally incomplete. The goal of this
research is the design and development of a general, efficient and
complete narrowing engine for FL languages.

This research will define both internal and external
representations of executable FL programs---the latter in XML.
This approach will decouple the frontends of different compilers
and interpreters of FL languages from the narrowing engine. This
separation will enable frontends for different languages to use
the same backend. By contrast to other contemporary research
efforts, the proposed narrowing engine will map narrowing
computations to computations in an imperative language. The
internal representation of the executable code will be a
thin-layer bytecode over the mapping of narrowing computations to
computations in an imperative language. This approach promises a
good efficiency without sacrificing tasks, such as tracing,
debugging and profiling, that are more easily implemented in an
interpreter. An integral part of the implementation will be a
run-time environment for using the narrowing engine in the backend
of a compiler/interpreter of FL languages.